National Science Foundation Alan T. Waterman Award

Dr Mark Davis is receiving the Alan T. Waterman Award for his pioneering work in catalysis and catalytic materials, including the first synthesis of a molecular sieve with pores larger than one nanometer and the invention of supported aqueous-phase catalysts; each of these accomplishments opens up a new and potentially important area in catalytic science and technology, and also has implications for separations technology and environmental control.